Doctoral Dissertation Research: Status Characteristics and Justice Evaluations

SES-1029068
PI: Henry A. Walker
Co-PI: David Melamed
Institution: University of Arizona

This research project examines two distinct theoretical processes. First, it develops and tests a model of justice evaluations. The research investigates the factors that make individuals expect to receive relatively few rewards. By focusing on the factors which allow for acquiescence, the research offers insights into the amelioration of large scale, societal inequality. Second, the project contributes to expectation state theories by modeling characteristics with more than two states (e.g., occupational prestige). This facilitates more accurate point predictions of justice evaluation models.

Broader Impacts:
The improved precision of expectation state theories may contribute to a broader general theory of prejudice and discrimination.